HVAC Laboratory Instrumentation

A Heating, Ventilating and Air-Conditioning Laboratory is being created as a major addition to the laboratory facilities in Mechanical Engineering Technology. The laboratory provides students access to modern data gathering instrumentation equivalent to those used in the HVAC industry. Students use the laboratory to study the performance of air-conditioning systems and to the field of Testing, Adjusting and Balancing of environmental conditioning systems serving modern buildings. This project is being matched by an amount equal to the award.